LEAPS–MPS: Separation of Group (IV) and Lanthanide Complexes using Novel Photoredox Separation Methods

In this project, funded by the MPS-LEAPS (Launching Early-Career Academic Pathways) Program and managed by the Division of Chemistry, Professor Mullane and her students at Hawaii Pacific University will perform studies focused on the development of novel separation methods for rare earth elements and early transition metals. Rare earth elements play a vital role in modern technologies, such as permanent magnets in wind turbines, LEDs, and in rechargeable batteries. However, the United States remains heavily dependent on imports, with 80% of its rare earth element supply coming from China. Recycling of decommissioned materials can help to decrease reliance on importing rare earth elements for use in these technologies. Professor Mullane and her students will develop novel separation methods utilizing selective photochemical reactions in combination with conventional separation techniques, such as crystallization and extraction. Their studies could contribute a low-energy and effective method for separating metals with similar atomic radii and oxidation states and expand on the active research in the photoredox chemistry of rare earth elements and early transition metals. Beyond its scientific and industrial merit, this research will be conducted by undergraduate students at Hawaii Pacific University where the students will receive training in air sensitive synthesis techniques, electrochemistry, and characterization techniques.

In this work, Professor Mullane and her students will synthesize novel and known light-absorbing complexes of lanthanides and early transition metals to determine how the ligand-metal interactions influence the absorption and emission of light by collecting and analyzing the excitation and emission of related complexes. Additionally, she and her students will screen the synthesized complexes as potential photocatalysts with organic substrates and exploit differences in photochemical reactivity for use in metal separations. Undergraduate students working on this project will gain experience with spectroscopic techniques such as NMR, IR, UV/vis, and fluorescence spectroscopy, and cyclic voltammetry as they characterize the complexes and interrogate the reasons for any observed differences in their excitation and emission spectra by computational and experimental techniques.